Workshop on Automation and Production Issues in the Pharmaceutical Industry; January 15, 1991; New Brunswick, New Jersey

The goal of this project is to bring together about 175 researchers, engineers, and managers in the pharmaceutical industry for a workshop to discuss and summarize the main issues in automation and productivity which can be investigated by the industrial engineering academicians and researchers.